The First Conference on Machine Learning in Heliophysics; Amsterdam, Netherlands; September 16-20, 2019

This 1-year project is to enable the participation of graduate students and early-career researchers at the first conference on Machine Learning in Heliophysics, which will be held in Amsterdam, Netherlands, during September 16-20, 2019. This international conference is entirely focused on the use of machine learning and information processing tools and techniques in heliophysics, thus encompassing the fields of solar physics, Sun-Earth relationships, magnetospheric and ionospheric physics. The goal of this first-of-its-kind conference is to improve present understanding of heliophysics phenomena and their dynamics, as well as our ability to predict space weather events by leveraging advancements happening at a fast pace in the machine learning and related communities. The practical objective of the conference is two-fold: (i) inform the international community on recent advancements in the use of machine learning and related tools and techniques in heliophysics; and, (ii) connect the physics and the computer science communities on the overlapping and multi-disciplinary topic of machine learning. The research and EPO agenda of this 1-year project supports the Strategic Goals of the AGS Division in discovery, learning, diversity, and interdisciplinary research.